Engineering Research Equipment Grant: High Speed Video System

This project provides for a high-speed motion analysis system camera to enhance research in the areas of dynamic stability, turbulent combustion, impact and biomechanics, magnetic recording-head disk interface, and robot motion control.